RAPID: Campus Coronavirus Response

This COVID-19 RAPID research project will assist hospitals and first responders throughout the United States as the country responds to the global pandemic. As COVID-19 cases continue to strain limited hospital resources, college campuses with largely vacated dormitories are in a unique position to provide additional beds and facilities to hospitals. Dormitories can be repurposed as alternative hospital sites to house recovering patients, or other non-critical-care patients, and can offer temporary lodging to medical personnel – all coordinated through health systems and hospital networks across each state. The project team has initiated a mathematical model and mapping tool to efficiently match patients and medical personnel to vacant college dormitory beds. This project is poised to make a meaningful impact mitigating the burdens on hospitals, initially in Massachusetts and the Northeastern U.S. and then expanding across the U.S. The tools developed have potential to be useful immediately as well as in potential future “second waves” of COVID-19 infections. In addition, the model design and the visual tools are adaptable to other emergency response efforts. The tools this project develops have the potential to support decision-making any time one type of institution needs to turn to a second type of institution to expand its capacity.

The project team has formulated their approach as a transport issue primarily, which they solve through a mixed integer program based on minimizing travel time. Their model primarily considers acute-care hospitals, although it could expand to include additional types of hospitals based on needs. The research effort behind this disaster assistance project includes investigating how various kinds of regularizations can be used to promote sparser matching in the linear integer program. Sparser matching would ensure that each hospital would collaborate with only one or a small number of universities and each university would receive patients/staff from only one or a small number of hospitals. Additional refinements may take hospitals with shared planning or logistics infrastructure into account, clustering them with the same universities. The team already developed a model for Massachusetts which they plan to scale to all 50 states using national datasets and engaging with appropriate hospital, university, and emergency management partners in those states.

This RAPID award is made by the Convergence Accelerator program in the Office of Integrative Activities and is associated with the Convergence Accelerator Track A: Open Knowledge Networks.